Project 2020

PROPOSAL NO.: 0230000
PRINCIPAL INVESTIGATOR: Brady, Tim
INSTITUTION NAME: Embry-Riddle Aeronautical University
TITLE: Project 2020

Abstract

Project 2020, an Embry-Riddle Aeronautical University (ERAU) engineering curriculum
initiative, is a nine-month planning grant the primary goal of which is to create a
curriculum development demonstrator inspired by the Electronic Performance Support
System (EPSS) methodology used in the aerospace industry (Boeing), and adapted to the
university environment. A team composed of members from education and industry will
collaborate to achieve the goals.

This grant is the first step in achieving a larger vision defined by these sequential goals:
(1) create a curriculum development methodology inspired by the Electronic Performance
System used in the aerospace industry (Boeing), and adapted to the university
environment, the objective of this planning grant; (2) bring together appropriate cross-
discipline faculty to use the EPSS methodology for development of a curriculum
component such as a course or a semester of courses as a demonstration project; (3) use
the same faculty to conduct a one-semester demonstration project with university
engineering and technology students; (4) measure, assess, and compare the student
achievement and satisfaction of the demonstration group at various intervals to that of a
control group of students engaged in the traditional curriculum using outcomes-based
methodologies; (5) measure, assess, and compare faculty performance, workload and
satisfaction in both groups at various intervals; (6) evaluate the results of the
demonstration project and prepare a report; (7) share the results through workshops and
other media with other universities to encourage and support demonstration and
collaborative projects at those universities; and (8) implement the curriculum concepts on
a large scale across the university and between campuses within the university.